Research on Room-Temperature GaN-Based Lasers

The proposal is a two-year industrial-university collaborative research effort between Duke University and Cree Research Inc., both located in Durham, NC, for research on the group III-Nitride blue semiconductor lasers. It is specifically for the Postdoctoral Industrial Fellowship Award in the Grant Opportunity for Academic Liaison with Industry (GOALI) program. The proposed work is to systematically investigate through theory and measurements the basic parameters of bandgap offset, carrier transport, waveguide losses, index of refraction, etc. Such studies if successful will undoubtedly contribute to the basic understanding of the material system and device operation. Such information will be very useful for a large segment of industries for the commercialization of the blue lasers.